ICP Atomic Emission Spectrometer in an Environmental StudiesCurriculum

The Department of Environmental Studies is acquiring an inductively coupled plasma atomic emission spectrometer for use in the analysis of environmentally important materials by students in both lower and upper division courses. The instrument is being used by undergraduates to analyze: magazine inks for toxic metals such as cadmium; both essential and non- essential metals in shellfish and other aquatic organisms; and, the content of various metals in soils, fuels, and landfill leachates. The instrument is being used extensively in undergraduate research projects.